Nesting Tool for Design of Three-Dimensional Products and Its Components

Nesting is the process of placing objects together with minimal void space between them. Nesting is required in the design and manufacturing of almost every product. This research will develop a three dimensional (3D) algorithm for the packaging of irregular 3D objects inside target volumes. This computer program will automatically pack the maximum number of components possible with minimum wasted volume voids. An intelligent software driven system for use in the design and manufacturing of any product will be developed that will enable designers to automatically visualize nested layouts as they design; reducing lead time for new product introductions, enhancing communications between design/engineering and manufacturing. In the computer industry, nesting of the various components is done manually in order to achieve minimum size of the computer box. With this computer program, a designer will be able to quickly assemble and define a computer geometry from prescribed components and their location constraints.